Statistical Attributes of Two-Dimensional Separations

This project is in the general area of analytical and surface chemistry and in the subfield of separation science. During the tenure of this three-year continuing grant, Professor Davis and his students will carry out theoretical and experimental studies to ascertain the statistical limitations of two-dimensional chromatography. The primary question being addressed by this research is the amount of information necessary to specify the chemical identities of analyte components in both one-dimensional and two-dimensional thin layer chromatography. %%% The successful attainment of the goals of this project is expected to impact broadly in the area of multi-dimensional analysis. Additionally, useful insights into problems in capillary zone electrophoresis, micellar electrokinetic chromatography, and field flow fractionation are expected to accrue from this research.